RUI: Physico-Chemical Characterization and Processing of Nanocomposite Polymers for Microfluidic Applications.

Hybrid polymer-inorganic materials represent an important development in the polymer
materials field due to the ability to potentially tailor the physical properties of these materials
with varying chemical composition and percentage of the inorganic component. This Research at
Undergraduate Institutions (RUI) proposal addresses several areas of intellectual merit. The
primary technical objective of this study is to understand the fundamental physicochemical
surface properties of polyhedral oligomeric silsesquioxane (POSS)-based nanocomposite
polymer materials when modified by oxidizing or reducing plasma environments, and their longterm
stability at elevated temperatures or with ultraviolet light exposure. A second objective is to
determine whether plasma-modified POSS-based polymers can be used as a coating material for
improved polymer microfluidic devices. Plasma control of the spatial and chemical composition
of the POSS-based polymer surface will be achieved using a remote plasma treatment tool and
the properties will be studied using a combination of surface analysis techniques including x-ray
photoelectron spectroscopy (XPS), atomic and lateral force microscopy (AFM/LFM), scanning
electron microscopy (SEM), and contact angle measurements. Test designs for PMMA-based
microfluidic devices have been fabricated, and POSS-based thin films will be deposited onto
these to determine the change in electroosmotic flow (EOF) characteristics using plasma surface
modification. Spatial control of the surface will be accomplished through a microfabricated
shadow mask allowing for a hydrophilic / hydrophobic gradient to be patterned into the
microfluidic channel. EOF and fluid flow measurements will be made in collaboration with the
University of Virginia to determine whether fluid flow can be controlled through a spatially
modulated surface within a microfluidic structure. A further objective is to design and develop
an integrated detection methodology for microfluidic devices using ultraviolet-visible absorption
spectroscopy taking advantage of the lower absorption edge of PMMA compared to the glass
substrates typically used in microfluidic devices.
A final objective related to the broader impacts of this proposal is the scientific training of
undergraduate research students and high school science teachers in a highly interdisciplinary
research environment. This project will involve the training of six to ten undergraduate
researchers and three high school chemistry, physics or biology teachers over the duration of the
program. In both cases, this project will introduce undergraduate chemistry and physics students
and secondary school teachers to the materials science issues of structure-property relationships.
Both students and teachers will be exposed to surface analytical techniques, vacuum science,
polymer materials characterization and processing, and microfluidic technology and science. The
participants in this program will also interact with graduate students and post-doctoral
researchers at the University of Virginia through direct laboratory exposure in order to
experience research at a research institution. These activities help serve to broadly impact the
pipeline of future scientists from the high school through the graduate level.